Partial Support of the International Seismological Centre

This grant is to provide partial support for the International Seismological Centre in the U.K. Data from this center has provided the cornerstone for many research efforts in the U.S. and is a necessary and useful asset of the global seismological community. This research is a component of the National Earthquake Hazard Reduction Program.